Shared Instrumentation for Computational Neuroanatomy

Recent enhancements in the resolution of primary data and the complexity of algorithms have resulted in significant increases in the computational load for the neuroimaging, `rain mapping and biomedical imaging communities. In response to these increased demands, a group of neuro- and biomedical scientists with common interests and computational needs have come together to seek funding for a shared graphics supercomputer. This group has a critical need for potent visualization hardware, extremely fast, parallelizable CPU architectures and considerable amounts of data storage and transfer capabilities. This equipment is required to satisfy the demands generated by three dimensional volume viewing, intricate surface extraction, nonlinear warping and the volumetric blending of complex polygonal objects with both raw data and the results of statistical analysis. Housed at the Laboratory of Neuroimaging at UCLA, the device will be available on a shared basis for interactive use locally and batch processing remotely. After evaluation of several vendors of graphics platforms, the equipment selected was an Onyx graphics supercomputer manufactured by Silicon Graphics Inc. Simulations and benchmarking confirmed the ability of this instrumentation to fulfill the needs of the participants. An administrative plan was created to manage the equipment equitably and to optimize its utility for the participating research projects. The ongoing research in nine local and four remote projects will directly and immediately benefit by using existing software that is capable of taking advantage of the features of the instrument. Programmers and other experts in this architecture are already members of the staff. Technical and management personnel are also among the funded group of participants. The existing collaborations of the participants and the common algorithmic requirements will enable sharing of computer code, analytic procedures and computational strategies. The availability of suc h a machine will enhance the productivity of ongoing funded research and foster the use of leading edge technology for all participants.